Mathematical Prediction of the Physical Properties of
Materials and Media

The mathematical investigations to be conducted under the present
award, which relate to theoretical and computational aspects of Partial
Differential Equations (PDE), constitute a natural continuation of Dr. Bruno's
recent efforts on PDE problems in materials science, plasma physics
and electromagnetism. The proposed work in computational electromagnetism
involves generalization of high-order scattering solvers introduced recently
to a variety of complex three-dimensional systems arising in applications --
including deformed or eroded bodies, rough surfaces and oceans as well as
general surfaces and heterogeneous bodies in three dimensional space.
Further generalizations of related complex-analytic approaches to theoretical
and computational aspects of plasma physics are also envisioned.
In the area of materials science, on the other hand, the work to be
carried out relates mainly to problems of elasticity in metallic alloys,
ceramics and other systems whose behavior is determined by an underlying
microscopic structure. Specifically, Dr. Bruno will seek methods to compute
the effects of microscopic inhomogeneous deformations and other microscopic
misfits on a macroscopic body. These methods will then be used to study
phenomena such as shape memory effect in polycrystals, thermal shatter in
polycrystalline ceramics, hardening in magneto/electro-rheological fluids,
microfracture at grain boundaries, etc.

The mathematical research that will performed with this award has applications
that include radar, sonar, remote sensing, clutter removal in remote sensing
applications, amongst others in the area of electromagnetism, as well
as design of modern materials, toughened ceramics, smart structures,
actuators and sensors in the area of materials science. The novel approaches
that will be studied, developed and applied have been successfully
tested in a variety of configurations. They have already lead to theoretical
advances and computational capabilities well beyond those available previously
in the general areas of electromagnetic scattering and materials science and
will now be extended to more complicated situations and a wider class of materials
and media. This work is to be pursued in collaboration with colleagues and
postdoctoral associates in academia and industry in addition to graduate students.
The students' participation will be designed to provide a sound general
education in applied mathematics, including substantial expertise in design of
state-of-the-art simulation capabilities. Students will be involved in concrete
applications in fields related to those mentioned above, and, in addition,
by direct interaction with scientists from industry or national labs.
Dr. Bruno will prepare researchers for careers in a wide range of areas of
applied mathematics, ranging from the more theoretical to the engineering-oriented,
and will provide them with a solid theoretical background, with a talent for
simulation, and with a strong commitment to applications in science and engineering.